Connections to netILLINOIS - Phase IV

9405926 Hartman Bradley University with participation and support from major educational institutions and industry, and a strong working partnership with CICNet, the state of Illinois Central Management Services (CMS), and with considerable networking experience within its member shop, has developed a communications network known as netIllinois. NetIllinois request support to provide Internet connection to thirteen (19) Illinois colleges and universities (Blackburn College, Carl Sandburg, College, Danville Area Com. College, Illinois College, Joliet Jr College, Kendall College, Kishwaukee College, Knowledge Systems Institute, Lewis and Clark Com. College, MacMurray College, McKendree College, North Park College, Rand Lake College, Rock Valley College, Sauk Valley College, Shawnee College, Southeastern Illinois College, Trinity College, and Triton College) The requested connections will support connectivity to netIllinois, CICNET, NSFNET, and the greater Internet. It will also provide access to state, regional, and national computing resources and databases; and foster communication and collaboration among teachers, students, scholars, and researchers at these institutions and their peers within the worldwide education and research community. The network will provide a consistent statewide architecture for NSFNET access for a broad variety of entities engaged in education and research. This cooperative network will provide gateways to regional, national, and international networks and will be consistent with their standards. It will further the institutions' work in enhancing the state's economic development through a well-educated workforce, accessible training opportunities, and research and development partnerships. Another goal of the network is to facilitate collaborative projects and sharing of resources between institutions, including those outside the state.